Collaborative Research: Work-Family Policy and Poverty

SES-1022183
PI: Joya Misra
Institution: University of Massachusetts, Amherst

SES-1020831
PI: Stephanie Moller
Institution: University of North Carolina, Charlotte

This project will assess how poverty rates and the depth/severity of poverty vary for women by marital and parenthood status, and whether family benefits and work-family policies explain these variations. This research will expand on the Misra-Budig-Böeckmann Family Policy Database to determine how policies affect the risk of and the depth of impoverishment among women across twenty-two countries and five time periods by combining the policy data with the Luxembourg Income Study (LIS). This will allow stronger claims about the relationships between work-family policies and poverty.

Broader Impacts:
By examining the impact of a variety of work-family policies across twenty-two nations and five time periods on poverty, this research will provide important answers about the relationship between particular policies and poverty outcomes.